Distributed Memory Computer Research at the University of Puerto Rico - Mayaguez

The objective of this RPG is to assist the PI in developing a full proposal in the area of Distributed Memory Computers (DMCs). Code optimization is an important part for today's high performance DMCs. This research concentrates on developing new techniques for performing interprocedural analysis for high performance computing applications. This information is vital in order to allow further transformations of the code in optimizing compiler. This research will initially be based on tools available over the Internet such as Parafrase and MPI. These packages will be imported and changes to the code will be performed in order to test our algorithms on various application programs. This project includes a component for undergraduate education at the University of Puerto Rico- Mayaguez. These students will be heavily involved in using the available tools for interprocedural analysis and in developing and testing new strategies.